PostDoctoral Research Fellowship

This award is funded in whole or in part under the American Rescue Plan Act of 2021 (Public Law 117-2). This award is made as part of the FY 2022 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Elijah Bodish is "Representation Theory and Categorification". The host institution for the fellowship is the Massachusetts Institute of Technology, and the sponsoring scientist is Pavel Etingof.